Neural recognition of acoustic courtship songs in Drosophila

Recognizing patterns within sounds is how we can tell a baby’s cry from a car’s honk and converse with a loved one. Like humans, animals also use communication sounds to find mates and settle disputes. Brain cells called neurons in humans and animals respond to specific sounds, such as syllables within words, songs, or calls. Such sound-sensitive neurons are found in many different animals, but how neurons recognize specific sounds is not known. Here we will study how individual neurons recognize sounds by using the tiny fruit fly as a model. Flies are ideal for this research because their small brains are easy to study due to the unique biotechnology and AI tools available for testing how neurons work. Female flies listen to male songs to decide when to mate, and fly brains have neurons that recognize specific parts of the male songs. This project will use special genetic tools to record and control the activity of sound-sensitive neurons while flies hear different songs. Combining these tools with AI-based animal tracking will test how sound-sensitive neurons affect the reactions of female flies to songs. This project will advance STEM workforce training and educator development by training undergraduate students, a PhD student, a postdoctoral researcher, and high school teachers in the latest neuroscience research techniques. Researchers will share their discoveries with the public through interactive events at a local science museum. This research will improve understanding of how brains process sounds while training future neuroscientists.

Understanding communication sounds requires complex pattern recognition. For instance, resolving both frequency and timing patterns into syllables, words, and sentences forms the basis of speech recognition. Likewise, sound patterns within animal communication signals convey information such as sender identity and social context. In many species, including humans, sound pattern recognition occurs at the single-neuron level and results in neurons with responses that are selective for specific sounds or parts of sounds. However, the neural mechanisms underlying sound pattern recognition are not well understood. Progress has been limited by difficulties in circuit mapping and challenges in recording and manipulating the activity of defined neurons across individuals, particularly in large brains. The objective of this proposal is to reveal the neural basis of sound pattern recognition in one of the most experimentally tractable neuroscience model systems, Drosophila melanogaster, or fruit flies. Female flies use complex patterns within male songs to make mating decisions, and fly brains have neurons that are selective for different parts of the songs. The compact brains, biotechnology tools for targeting defined neurons for activity recording and/or manipulation, and AI tools for quantifying sound-driven behaviors make flies ideal for this research. This proposal investigates sound-selectivity at the stimulus (e.g., input), synaptic, circuit, and behavioral (e.g., output) levels. The findings will provide mechanistic insights into the neural basis of sensory pattern recognition, which is a challenge all brains face. This project advances NSF’s priorities in Biotechnology and Artificial Intelligence.